Indestructibility Phenomena of Large Cardinals

9970993
Hamkins
Professor Hamkins will continue his research on the indestructibility
phenomena of large cardinals. This work, lying at the common focus of two
broad set-theoretic research efforts, namely, forcing and large cardinals,
seems particularly promising in light of the recent advances that have
emerged from his earlier work with gap forcing and the lottery preparation.
Specifically, Professor Hamkins will investigate a series of open questions
concerning the extent to which indestructibility is possible with various
kinds of large cardinals, with a particular focus on the strongly compact
cardinals. In addition to this work, he will continue his work on two other
projects, the automorphism tower problem and the new theory of infinite time
Turing machines, a model of infinitary computation.
Professor Hamkins' research involves the study of the sublime,
inaccessible notions of mathematical infinity, which have fascinated
mathematicians for centuries. In the twentieth century, particularly in
the past thirty years, set theorists have gained a profound understanding
of the largest of these transfinite numbers, large cardinals. Professor
Hamkins has been particularly interested in how large cardinals are
affected by forcing, the technique invented by Paul Cohen by which set
theorists have had glimpses into alternative mathematical universes and
realized the rich diversity of mathematical possibility. Much of his work
therefore lies in the common focus of two major set-theoretic research
efforts, namely, forcing and large cardinals. He will endeavor to
investigate the curious indestructibility phenomena of these cardinals, by
which their largeness survives in a wide variety of mathematical universes.
***